Measurements of Lightning Electromagnetic and Optical Signals and Remote Determination of Lightning Characteristics

The objective of this research is the physics of the return stroke in natural lightning. Much of the experimental work would be performed in Florida as part of future coordinated studies of rocket-triggered lightning. Correlated, two-station measurements of electric fields are planned and would be used to better characterize the lightning near-field environment, and to test the transmission-line model and other return stroke models. Return stroke velocity, a key parameter in return stroke modeling, would be measured photelectrically, and fast time- and height-resolved measurements of narrow-band lightning emissions near the base of the channel would be used to investigate recent hypotheses concerning the mechanism of return stroke initiation. Radiometric observations of lightning emissions in the near- IR and visible would be used as a means of remotely determining lightning channel temperatures. Together with simultaneous measurements of current, these data would provide a unique opportunity for testing numerical models of slow time-varying arcs in air.